Presidential Young Investigator Award

This Presidential Young Investigator Award deals with research in the area of solid-state polymeric materials, including the thermodynamics, kinetics, and molecular motions in phase transitions (particularly crystallization); structure - property (especially mechanical and optical) relationships; high-performance polymeric fibers; films for microelectronic applications ; and computer simulations of macromolecular dynamics and transitions.